Far Fields and Remote Sensing

DMS-0355455
Title: Far fields and Remote sensing
PI: John Sylvester (University of Washington)

ABSTRACT

We study inverse scattering and inverse source problems for the
Helmholtz equation, Maxwell's equations, and other PDE's. Our efforts
focus on identifying those characteristics of size and location that
can be computed from data sets that are much too small to uniquely
determine the source or scatterer.

The Born approximation to time harmonic scattering is the Fourier
Transform. In this approximation, one such data set would be the
restriction of the Fourier transform of a function to a sphere . In
this case, it is impossible to find the support of the function from
this data, but we can find a smallest convex set, a set which must
belong to the convex hull of the support of any function with this
restricted Fourier transform. This set can be stably calculated, even
from noisy data.

For other data sets, there are other "minimal supports", where the
definition of "support" depends on the data set. We seek to discover
the correct notion of support for different data sets and different
models. In the presence of a priori information (e.g. polygonal shape
or positivity), these minimal sets may even describe true supports.

The focus of this project is to develop and improve algorithms for
acoustical and electro-magnetic remote sensing (e.g. radar, sonar,
ultrasound).

The mathematical theory of inverse scattering includes powerful
methods for deducing the material properties of an object from data
measured in a remote sensing experiment. However, there are many
practical applications where it is impossible to make observations at
sufficiently many frequencies and angles to apply these methods. In
this project, we focus on understanding those aspects of size and
location that can be unequivocally identified from limited data sets,
and developing algorithms to stably compute these sizes and locations.